A Two Component Activator/Dissociation Platform for Reverse and Forward Genetic Analysis in Maize

Genome sequencing projects have provided blueprints to understanding both monocot (rice) and dicot (Arabidopsis) species, yet the function of less than 10% of sequenced plant genes has been experimentally determined. Maize is the economically most important plant in the US and a major crop world-wide. An understanding of maize gene function is essential to develop a comprehensive framework for increasing the productivity of this global food, feed and energy resource.

The transposable elements Activator (Ac) and Dissociation (Ds) will be utilized to create a platform for identifying gene knockouts in genetic screens based on plant phenotype or DNA sequence. Using classical genetic techniques and non-transgenic materials we will generate a collection of 10,000 families that each harbor a unique Ds insertion distributed evenly throughout the genome. DNA Sequences flanking the Ds elements will be cloned and sequenced providing a precise physical location for each insertion in the maize genome. As Ds tends to move to closely linked site sites in the genome, each Ds will serve as a platform for additional rounds of mutagenesis targeting linked genes.

Access to project outcomes
This project will be integrated with ongoing maize genome sequencing projects and the data disseminated as it is generated through two project websites at Iowa State University and the Boyce Thompson Institute. All genetic materials generated will be distributed by the Brutnell lab during the project period and made freely available at the Maize Genetics Cooperative Stock Center at the end of the project period.